Mathematical Sciences: Multidimensional Reconstruction Methods for Inverse Problems

This project on inverse problems will develop mathematical recovery methods for unknown coefficients from second order partial differential equations in multi-dimensions. The stability of these methods and their computational costs will also be analyzed. Applications to age-structured populations will be investigated and information such as birth and death rates will be extracted from certain functionals of the population. Inverse problems arise in mathematical models describing physical systems containing uncertainties in coefficients or boundary conditions. Using additional information, in the form of boundary data or interior measurements, a more accurate model is sought -- one in which the output of the model conforms to the measured data as closely as possible. Important examples of inverse problems are medical imaging using CAT scans, acoustic sonograms, and non-destructive testing of aircraft wings in searching for damaged or failed sections.